NSF Young Investigator: Solid Base Catalysts and Quantum- Size Photocatalysts

This is an NSF Young Investigator award. Research covers two distinct areas of heterogeneous catalysis: solid bases and quantum-sized photocatalysts. The solid bases of interest are primarily metal oxides and mixed metal oxides with surface areas in excess of 200 square meters per gram. These are studied in both supported and unsupported form to examine the influence of carrier structure on reactivity. Zeolite-occluded oxides are also under study. The overall aim is to understand how the oxide surface structure stabilizes anionic intermediates during a catalytic cycle; the approach is to correlate catalyst synthesis with atomic structure, adsorption, and chemical reactivity. Principal techniques used are Fourier-transform infrared spectroscopy of surface intermediates, temperature-programmed desorption and reaction of probe molecules, and steady-state reaction studies, including isotopic labelling. Nanometer-sized semiconductor clusters exhibit unusually high quantum efficiencies for photocatalytic activity compared to bulk-phase material. Exploratory studies with supported titania and other photocatalysts are performed with the goal of creating a selective hydrocarbon oxidation catalyst by incorporating the photoactive material onto a carrier capable of molecular discrimination and orientation. Zeolites and related materials are suitable candidates for such a carrier. Materials are characterized by laser Raman spectroscopy, ultraviolet diffuse reflectance spectroscopy, and X-ray absorption spectroscopy. Adsorption studies and steady-state photocatalytic oxidation reactions are used to probe the surface reactivity of these novel materials.//